Statistical Analysis of Long-Memory Continuous-Time Processes

The investigator studies the continuous-time fractionally-integrated
Auto-Regressive Moving-Average processes and their variants, based on
recent advances in stochastic calculus of fractional Brownian motion.
Such models provide a general framework for analyzing univariate or
multivariate discrete-time data sampled from an underlying
strongly-dependent continuous-time process. In particular, the
investigator develops methods for studying volatility, fractional
co-integration and temporal aggregation of long-memory time
series data.

Time series data are data collected sequentially over time, and
they abound in science and other fields, e.g., finance.
The investigator studies new methods for analyzing time series data
with long-memory temporal patterns. The developed methodologies furnish
general tools for analyzing changes in the volatility pattern in the data,
exploring structural relationships within a set of time series data, and
assessing effects of aggregating the data over longer observational periods.
These methods have applications in various fields, e.g., pricing of financial
derivatives.